MRI: Equipment for Remote Usage, Access, and Learning at NNUN

EIA-0079443
Tiwari, Sandip
Cornell University-Endowed

MRI: Equipment for Remote Usage, Access and Learning at NNUN

This CISE/MRI proposal will research The National Nanofabrication Users Network (NNUN) which proposes the acquisition of equipment and software to enhance the ability of the network to communicate between sites with remote users, and to provide remote training and fabrication-specific information, while providing remote computer aided design (CAD) capabilities. Specifically NNUN proposes acquisition of software and hardware for: (1) video conferencing between sites and external user institutions, (2) production of multimedia training and (3) allowing users to develop the bulk CAD pattern files remotely before arriving on-site.